Workshop on Future Needs in Tribology

CMS 0442380

Abstract

The objective of this grant is to facilitate the mission of the National Science
Foundation by hosting a workshop dedicated to understanding the future needs of industry
in matters related to the discipline of tribology.
Intellectual Merit:
Tribology is considered an enabling science in that its lessons contribute to the
development of new products and processes in all industrial sectors. It is envisioned that
the proposed workshop will bring together visionaries from industry, academia, and
government agencies in order to i) identify research opportunities that can be applied to
encourage sustainable, societal and environmentally-responsible economic growth; ii)
develop a network for channeling useful information towards industrialists, policy makers
and the public; and iii) stimulate research in new fields of tribology (e.g.,
nano-structured materials, molecular dynamics modeling, smart materials and surfaces,
etc.)
Broader Impacts
Research in the discipline of tribology has promoted the modernization of industry, and
has a strong impact on resource (energy and materials) consumption through quality
improvements and efficiencies. This workshop will provide knowledge of value to continuing this trend.